2002 Multiphoton Processes Gordon Conference

This award provides support for student attendance at the 2002 Gordon Conference on Multiphoton Processes. The Conference will discuss topics such as high harmonic generation, ultrafast processes, wave packet dynamics, and high-field laser-matter interactions.